Spectroscopy and Dynamics under High Pressure

In this project supported by the Experimental Physical Chemistry Program of the Chemistry Division, Chan will use pressure as an experimental parameter to elucidate the nature of dynamic processes, such as a physical interaction or a chemical reaction, in the condensed phase. A diamond anvil cell (DAC) is used to introduce pressure at temperatures down to 4 K, and systems are probed using emission lifetime, transient absorption, and high-pressure laser spectroscopy. Studies of quantum tunneling reactions and experiments on energy transport in quasi one-dimensional spectroscopic systems will be performed. Pressure offers a useful new dimension in chemical investigation because it provides a controlled and gradual means to modify molecular distance and orientation. In these experiments two diamond anvils compress a small hole in a gasket and generate very high pressure under conditions of very low temperatures. Results from this project will help illuminate reactivity in the solid-state and will have practical implications in understanding the photophysics of dye aggregates, such as are important in the technology of photography.